Molecular Semiconductors as Thin Film Light Emitters

Molecular seimconductors present a different approach for the generation of coherent light than that pursued by most other companies and research laboratories. Such an approach could succeed and could generate considerable interest in the development of the sources.